PYI: Hierarchal Test Pattern Generation for Manufacturing Defects

Ferguson The focus is on developing cost-effective testing methodologies that detect more defective ICs than current methods. There are two approaches to manufacturing test. The use of high-level fault models reduces test generation costs, but furnish lower quality tests. The use of low-level fault models increases the quality of circuits that have passed the tests, but causes testing costs to mushroom. This research integrates these two techniques so that tests can be generated that detect virtually all plausible manufacturing defects without excessive automatic test pattern generation costs. The approach is to develop a software tool, "Carafe" (circuit and realistic fault detector), which determines the most likely faults to occur in a CMOS circuit. It exploits the hierarchical nature of VLSI circuit designs, making fault extraction faster and more memory efficient. Also it supports multi-level metal CMOS technologies.